A Renewal of Research on Problems in Nonlinear Networks and Systems

The thrust of this project is on foundational and applied research problems in Nonlinear Circuits and Systems. In particular, the research is concentrated in two broad areas. Under the heading, "Nonlinear Modeling and Simulation," applications of Volterra series representations in model validation, adaptive filtering, and in characterizing microwave devices and communications channels are investigated. Canonical Piecewise-linear analysis and higher order circuit elements are employed in order to reduce the computational effort in computer-aided circuit analysis, and to model accurately frequency-dependent effects in high speed integrated circuits. Under the heading, "Nonlinear Dynamical Systems," research is concentrated on the development of global properties of these systems. Analytical tools, software, and instrumentation with the objective of making the investigation of nonlinear systems accessible to the wider electrical engineering community are being developed. Through studies of bifurcation phenomena, it is hoped to identify non-functional modes and failure boundaries in synchronization and phase-locking systems.